Geology Labs On-line

9809724 The PI proposes to develop a set of five virtual applications and web sites related to geoscience education, including 1)Radioactive dating techniques, 2) groundwater hydrology, 3) earthquakes, 4) coastal wave refraction, longshore currents and littoral drift modeling, 5) slope stability modeling for landslides. Development of these virtual courseware will involve a team of faculty members and website and computer programmers. The PI will also involve the staff of the Center for Usability in Design and Assessment to help assess the effectiveness of the computer interface designs. The PI plans to make this project available on one of their four web servers. These web servers currently handle between 60-90,000 accesses per day from about 2000-3000 students for two existing virtual programs designed by the PI.